Typed Common Intermediate Format

9901011 Zhang Shao
The main objective of this research is to design and develop a typed common intermediate format (named FLINT) for multiple advanced programming languages. FLINT is based on an extended variant of the polymorphic lambda calculus Fomega. Although advanced languages can be very different in semantics, they all have a mathematically rigorous type system. FLINT provides a common compiler backend that can be quickly adapted to generate compilers for new languages. With its unified type system, FLINT serves as a great platform for reasoning about cross-language interoperations. Previous work on FLINT was done in the context of ML. This proposed research will extend FLINT to support other language features such as classes and objects in Java, type dynamic in Scheme, lazy evaluation and type classes in Haskell, and various system-programming primitives in C and Modula-3. The goal is to achieve safe, principled, and fine-grain language interoperation between different advanced languages and with C and assembly code.